Workshop: Cross-Disciplinary Investigations in Imaging and Image Analyses

This proposal requests funding for a two-day workshop on cross-disciplinary investigations in imaging and image analysis. This workshop will bring together representatives from US and foreign academic institutions representing a variety of disciplines engaged in imaging and imaging analyses. The workshop envisions large-group keynote presentations by prominent researchers and break-out sessions on specific topical areas. One goal of the meeting is to facilitate education, training and informational exchange among multiple scientific disciplines including humanities, arts, social science, science, and computational researchers to address related research challenges for which image and imaging analysis is both a means and end (visualization, virtual spaces, et al.) The organizations planning the event include the National Center for Supercomputing Applications (NCSA), the University of Illinois School of Art and Design, and the Institute for Computing in Humanities, Arts, and Social Science (I-CHASS) as well as individual stakeholders in the broader community.